Gordon-Conference: Temperature Stress in Plants, Ventura, California, on January 28 to February 1, 2001

Temperature controls plant growth and development and is ultimately one of
the most significant factors limiting crop productivity. As temperature
goes above or below a plant's optimal range plant growth is affected. The
effects of temperature and methods for reducing damage by both high and low
temperature has been the topic of a Gordon Research Conference every other
year for a little over 10 years. In 2001 this conference will be held
again so that researchers can share the latest research in this field. The
topics to be covered in the conference were selected from topics suggested
by previous participants and past chairs of this conference. In addition,
the co-chairs searched recently published papers to see where interesting
work was being reported. Two general themes emerged. Past participants
wanted to hear about genomic approaches to studying temperature stress and
they wanted to hear about industry efforts. One of the most important
outcomes from a Gordon Conference is the interaction between early career
and more established scientists. This is of benefit both to the early
career scientists, who become known in the field, and to the established
scientists, who hear new ideas and innovative research that might otherwise
have trouble getting noticed. At this conference one session will be set
aside for presentations from early career scientists. Speakers for this
session will be selected from among those applying to present posters.
Winners will receive funding from this grant to allow them to attend this
conference. The winners will be announced at least three weeks ahead of
the meeting giving winners time to prepare talks. The competition will be
announced on the meeting web site and in an email message to everyone who
attended the last two conferences. The conference vice chair will be
responsible for selecting the winners and working with the winners to help
make the most of this opportunity.